Scaling and Fluctuations in the Integer Quantum Hall Effect

9311091 Wei This project will study scaling behavior near the metal-insulator transition in the integer quantum Hall effect. Of interest is length-scale dependent scaling of universality expressed in the behavior of the fundamental critical exponent and the overall scaling function. In addition, the relatively new regime of dynamic scaling will be addressed. The materials used in the project are InxGa1-xAs heterostructures which have short-ranged background potential fluctuations and homogeneous transport properties. Experimental investigations, involving magnetotransport and noise measurements, will be carried out in the temperature range from 0.05 K to 100 K and in magnetic fields to 14 T. %%% This project will study the behavior of electrons confined to two dimensions in semiconductor layers, or heterostructures. The transport properties of these materials turn out to be extremely complicated and require low temperatures and high magnetic fields as tools to sort out the phenomena. The behavior is of fundamental interest and necessary to test recent theories of the complex behavior. The semiconductor materials present special fabrication challenges and the results of the experiments are of technological relevance in materials synthesis and characterization. ***